Analysis of Temperature and Biological Data from Diffuse-Flow Hydrothermal Vents on the East Pacific Rise (9 degrees 49'-51'N): Continuing Time Series Studies

High resolution biological observations and samples have been collected approximately yearly over the nine year perod since the 1991 eruption near 9 degrees 50 inutes north on the East Pacific Rise. Continuous temperature records have been collected over the same time period from low-temperature diffuse flow sites and high temperature chimneys. The biological time-series data will be analyzed to quantitatively and qualitatively characterize the temporal and spatial changes in vent community structure. Multiple temperature records within individual difuse-flow sites will be analyzed and compared with those from all of the other diffuse-flow sites.